Journey to Planet Earth: An Annual Report

Screenscope, Inc. is producing three annual "state of the environment" reports. The reports will consist of a yearly, ninety-minute, prime-time public television program and an extensive outreach initiative to engage families and the public in a variety of educational activities. The television programs will:

Present an up-to-date "state of the environment" assessment of ecosystem performance and human health.

Feature the year's most important environmental incidents.

Highlight the year's most cutting-edge scientific breakthroughs and research dealing with environmental issues.

Focus on community programs that have helped improve the quality of the environment over the past year.

The outreach initiative will include:

A Citizen Science Project with strong emphasis on family participation

Neighborhood workshops and coalitions organized by local PBS stations in association with the
American Association for Advancement of Science and the World Resources Institute.

An interactive web component including real-time environmental satellite data and visualizations.

Local and national media events featuring the yearly release of a "State of the Environment" report.

Partnerships will be developed with environmental organizations to help promote and implement the initiative's informal education activities.

The project will be under the direction of Marilyn and Hal Weiner with the television programs being produced by their company, Screenscope. Anthony Janetos, Vice President and Chief of Programs at the World Resources Institute will have oversight responsibility for the science information presented in the Annual Report. Project advisors include:

Bonnie Cohen, former Under Secretary of State for Management and Board member of CARE

Chet Cooper, former Deputy Director, Emerging Technologies, Battelle/Pacific Northwest National Laboratory

Robert Fri, Senior Fellow Emeritus at Resources for the Future and former Director of the National Museum of Natural History

Edward Frieman, Director Emeritus at of the Scripps Institution of Oceanography and Vice Chancellor of the University of California

Nay Htun, Dean of the University of Peace and former Assistant Secretary-General, United Nations Development Programme.

Thomas Lovejoy, Science Advisor to the World Bank and the UN Foundation

Jessica Tuchman Mathews, President of the Carnegie Endowment for International Peace

Per Pinstrup-Andersen, Director-General, International Food Policy Research Institute

Maurice Strong, Chairman, Earth council and former Secretary-General of the United Nations Earth Summit in Rio de Janeiro

There also will be science advisors for each of the individual episodes.